Statistical Physics of Polymer and Related Systems

Research will be conducted on mesoscopic descriptions of non- equilibrium phenomena associated with materials science. Models of non-equilibrium systems will be studied in terms of discrete space- time maps, which permit efficient computational tools to be developed. Using this approach dynamical scaling properties will be studied using both numerical and analytical techniques, including renormalization group techniques. Specific systems to be studied within the scope of the grant include: spinodal decomposition of polymeric systems, including hydrodynamics; dynamics of crystal surface reorganization; the effect of coexisting phase ordering on spinodal decomposition; polymer crystal growth; dynamical scaling at the onset of gelation; and, vulcanization.